Planning Grant: Mapping The Universe

9725025 Tully During this planning grant, the Film Arts Foundation will draft a script and develop prototype examples of animation for a one-hour television program that will provide viewers with insight into the large-scale organization of the Universe. These materials will be developed and tested in collaboration with advisors. The program will present, in a manner accessible to the lay public, the work that the PI, Brent Tully, and other astronomers have done on mapping the universe and will present current knowledge about the formation of this structure. The principals in the planning phase will be Brent Tully, scientific director; Thomas Lucas, producer/director; Jonathan Grupper, writer; and Edward Shaya, computer animator. They will work with a twelve-member advisory committee of astronomers working at research universities, informal educators from four major planetaria, and science educators.